Workshop on the Interaction of Morphosyntax and Lexicon in the Acquisition of Narrative Discourse; Albuquerque, New Mexico; Summer 1995

9411208 A research Workshop on The Interaction of Morphosyntax and Lexicon in the Acquisition of Narrative Discourse will be held at the 1995 LSA Linguistic Institute at the University of New Mexico in Albuquerque. The objectives of the workshop are: (I) to bring together experienced researchers who have done cross-linguistic work on the development of the functions of morphosyntax in narrative in order to compare findings across languages and methodology across studies; (2) to enable less-experienced researchers and students to work with these experts, to become familiar with the current issues, learn the state-of-the-art analysis techniques, and carry out summer-long collaborative projects; (3) to facilitate the formation of new interdisciplinary research collaborations which will extend beyond the summer. In summary, the workshop will provide a seminar setting for leaders, less-experienced researchers, and students to compare their analyses across languages, with the goal of testing and improving current theories of the acquisition of lexical and grammatical devices used in narrative discourse. The workshop will be led by Ruth Berman and Dan Slobin, and will focus on children's gradual mastery of the uses of the morphosyntax of their languages to convey complex narrative information, primarily utilizing the 'frog story' elicitation paradigm. The workshop will be open to all institute faculty, affiliates and students; those interested in the cross-language comparison of morphosyntax in aphasia and in developmental language disorders will especially be encouraged to participate.